A WOCE Hydrographic Section in the Western Pacific Along 149 Degrees East

9306689 Hall In this project, PI's will carry out a meridional hydrographic section along about 149 degrees East in the western Pacific contributing to bout US and international plans for the World Ocean Circulation Experiment (WOCE), along a line designated as WOCE Hydrographic Program (WHP) line P-10. One PI will oversee the cruise, particularly measurements of hydrographic parameters and nutrients, and the other will oversee the shipboard Acoustic Doppler Current Profiler (ADCP) measurements.